Growth and Activation of Multicomponent Atmospheric Particles: The Role of Organics

This project is an experimental study of the hygroscopic growth properties of organic carbon-containing aerosols. The studies will involve the generation of aerosols with a range of organic and mixed organic/inorganic compositions and characterization using a Tandem Differential Mobility Analyzer (TDMA) coupled to a Cloud Condensation Nuclei Counter. The experimental system includes a Scanning Electrical Mobility Spectrometer allowing detailed measurements of the fine aerosol size distribution in a time scale of seconds and the ability to produce internally or externally mixed aerosol. The properties of organic aerosol produced during the photo-oxidation of biogenic hydrocarbons will be a major focus of the proposed work.